Haldane Centenary International Conference on Human GeneticsCalcutta, India, December 1992, Group Travel Award in U.S. and Indian Currencies

Description: This project provides support for a U.S. delegation to an international conference in India, the"Haldane Centenary Conference on Human Genetics, Calcutta, India, December 1992". The five days meeting will mark the birth centenary of J.B.S. Haldane with the aims of: reviewing Haldane's contribution to the various areas of human population genetics, focusing especially on their impacts on current quantitative thinking; deliberating on recent advances in quantitative human genetics, evolution, population structure and genetic epidemiology; presenting applications of recent advances in theoretical aspects of human genetics; and, deliberating on some current issues concerning the interaction of genes and environment with a view to delineate some thrust areas that deserve immediate scientific attention of human geneticists. The meeting, which will be held at the Indian Statistical Institute (ISI) in Calcutta, is expected to be attended by scientists from the U.K., Japan, the Netherland, Germany, Australia, Brazil and Canada in addition to the U.S. and India. Scope: This activity commemorates Haldane, a pioneer in the field of human genetics who established his reputation in England, before moving to India in the later part of his life, where he continued his work at the ISI in Calcutta. The ISI is considered one of the foremost centers in the world for training and research in statistics, both theoretical and applied, including biostatistics. The conference will have the effect of promoting biostatistic research in India especially in devising statistical methods for analyzing molecular genetic data on human populations and families. It should increase the awarness of the visiting scientists to the social structure of the endogamous populations of India, the environment they live in and the resulting spread of genes within the populations. Initiation of collaborative research proposals between Indian and scientists from outside India, especially in the quantitative aspects of human genetics, is likely to result.